Development of Industrial Robotics System at SUNY Farmingdale Robotics and Automation Laboratory

This project develops robotic vision and thermal spray industrial systems at the university's Robotics and Automation Laboratory. This enhances both the teaching and training activity level to incorporate actual industrial applications. In order to manufacture products competitively, engineering and engineering technology students must have the technical skills and appropriate methodology in order to design products and applications in the modern automated industrial environment. The new equipment directly affects robotics and automation, computer-integrated manufacturing, system integration, control systems, senior projects and thermal spray interdisciplinary courses offered on these three campuses. In addition, this equipment is part of the university's center for technical education and distant learning to disseminate interactive educational robotics courses to local universities, community colleges, and nationwide audiences.